Collaborative Research: Advancing theories of language cognition through experimental studies of shared reading

Language is central to human cognition and for the majority of children around the world, acquisition involves learning two languages. Speaking two languages has been shown to produce social, economic, and cognitive benefits. This project aims to investigate how shared book reading interactions (with caregivers reading to children) can be structured to support dual language and literacy skills. This project has broad implications for supporting school readiness and the development of artificial intelligence that recognizes and interacts with multilingual speech. The project also advances open science by making coding protocols, data, and other research products available to researchers, clinicians, educators, and families. Finally, the project supports training of the next generation of researchers by providing training opportunities for students in cognitive science, psychology, and neuroscience.

This project tests the hypothesis that children’s language learning from shared book reading is influenced by two key features of language input found in text and speech of caregivers: language balance (amount of text in one language relative to the other) and language switching (mixing words from different languages within text). The research team designed custom dual language books for preschoolers within the parameters typically found in commercially available books for language balance and language switching to systematically test the impact of book design on learning of novel words in each language and story comprehension. This project informs theories of language learning and advance understanding of how language input can be effectively tailored to support language learning in young children.